Midwest Center for Information Technology

The Midwest Center for Information Technology is a consortium of ten community colleges together with four-year colleges, secondary school districts and businesses in Nebraska, Iowa, and North and South Dakota. The Center emphasizes the areas of networking, computer applications, systems integration, application development, telecommunications, and digital media. The goal is to increase the preparedness of the region's information technology (IT) workforce primarily through faculty and teacher professional development, 2+2+2 articulation, innovative education/training programs targeting students at various levels including incumbent workers, and dissemination of best practices and proven deliverables. Objectives include increasing by 50% the number of teachers and faculty who hold industry-validated certifications; by 50% the number of students articulating to community college programs; by 50% the number of students completing community college IT programs; and by 25% the number of students articulating successfully to four-year colleges. These activities should lead to a 30% decrease in the number of unfilled IT positions in the region's businesses. The Center programs build upon other programs of the Applied Information Management Institute.